Cooperative Agreement: Research in Precision Engineering

The research activity is geared to developing solutions to problems in Precision Engineering and Manufacturing. A multi- disciplinary, large group effort is to be concentrated on such problems as machine tool and production metrology; ultra-precision, diode laser based interferometry for positional feed-back; design and development of new-material based machine elements for ultra high precision equipment and atomic scale machining and modelling. A balanced perspective of fundamental and applied effort is to be maintained. The focus of the entire effort is designed to research and develop the equipment and processes for the next generation, ultra-high-precision applications. This effort will be coordinated with other large groups involved with research in manufacturing processes and equipment in the United States and the domestic industry, with a high degree of interaction with academic institutions overseas. This will ensure research activity of the highest standards while supporting education goals and technology transfer in the area of manufacturing. The area of precision engineering and manufacturing is of significant strategic and commercial value in the next decade. Research activity of this nature will have an impact on the nation's ability to remain competitive in this field of activity.